Research Initiation Award: A Comprehensive Controller Design Methodology for Nonlinear Processes

The main body of control literature has dealt with the development of controller design techniques for linear time- invariant systems. Nonlinearities encountered in a process model have usually been treated as uncertainties resulting from the linearization of that model around a steady state. Most of the real processes in chemicals manufacturing are inherently nonlinear due to, for example, the exponential form of the rate equations' dependance on temperature, hold-up on trays in distillation columns, etc. The objective of this project is to develop controller design methodologies for continuous-time nonlinear processes. Process modelling uncertainty, disturbance uncertainty, and hard constraints on process inputs and outputs will be explicitly considered. The overall controller design problem will be formulated as a weighted minmax problem, whose solution will not be interpreted as "worst-case" design, but will be shown to generate one of the noninferior solutions to a naturally occurring multi-objective optimization problem. Investigation of the solvability and of theoretical properties of the minmax problem will be undertaken through a number of case studies on chemical and biochemical reactors and distillation columns, all of which are known to present nonlinearities. Nonsmooth calculus of variations will be used to perform the maximization of the objective function with respect to closed loop input signals, while nonlinear programming will be employed to carry out the minimization with respect to the controller, the latter modelled through finite Volterra series.